Planning Meeting to Organize K-12 Science Around Core Ideas

This RAPID project from the NRC's Board on Science Education (BOSE) proposes to convene a day and one-half long workshop of national experts to develop a conceptual framework for how to recast science standards around a limited set of core scientific ideas in order to establish content priority for science educators and policymakers. The workshop will integrate reserach on children's learning, drawn from several NRC synthesis studies, into the new conceptual framework. This body of research, along with commissioned workshop papers will form the background materials for the workshop. Participants will include scientists, learning scientists, science educators and those familiar with practice and policy. The workshop is tied to a recently initiated effort of the National Science Teachers Association (NSTA) Science Anchors project.